Theory of Electronic Transport in Disordered Materials

It is proposed to study transport properties of disorderd electron liquids, both normal and superconducting. The first project is to study inelastic electron scattering in normal conducting thin films and wires. Taking into account realistic phonon spectra, this will make possible a parameter-free comparison with experiments on free-standing structures. For superconductors, the quasiparticle lifetime will be studied as a possible source of experimentally observed pairbreaking. They will also explore further experimental consequences of the recently proposed coorelation gap mechanism for the disorder dependence of the critical temperature. The third project is to obtain a better understanding of the metal-insulator transition of interacting electrons. This will be done by a careful renormalization group analysis of the model derived by Finkelshtein. It is argued that the renormalization procedure is much more subtle than has previously been recognized. Very recent evidence suggests that for the properly treated model renormalizability can be established. This will guarantee that the resulting flow equations are physically meaningful. The results of this project will make it possible to study the breakdown of screening and the destruction of superconductivity at extremely strong disorder, thus making contact with the first two projects.